Pittsburgh Supercomputing Center

This award supports the renewal of the cooperative agreement between the National Science Foundation and the Mellon-Pitt- Corporation (MPC). Drs. Michael Levine and Ralph Roskies are the Co-Directors of the Center. MPC is one of the national supercomputer centers funded by the Division of Advanced Scientific Computing and provides supercomputer access to scientific researchers as well as training/educational and other related scientific services. The effective date of the agreement is October 1, 1990. This is an administrative action.